Regulation and Functional Analysis of Eggshell Gene Productsin Drosophila

During late oogenesis in Drosophila, ovarian follicle cells synthesize and secrete several proteins that assemble to form the vitelline membrane and chorion sublayers that comprise the eggshell. Our research is directed towards understanding the molecular mechanisms that underlie developmental regulation of eggshell protein synthesis and morphogenesis. towards this end, Dr. Waring has been studying the molecular basis of mutations that affect eggshell production and assembly. This proposal is directed towards extending our analyses of the dec-1 locus, an eggshell structural gene locus that is exceptional in terms of its size, mutability, and ability to encode multiple products via developmentally regulated alternative RNA processing and proteolytic cleavage events. Studies in three areas are proposed to elucidate the functional significance of these processing events. First, domain-specific antibodies will be raised and used to identify and localize protein products of the locus during different stages of eggshell assembly. Second, the use of different RNA maturation pathways will be defined with regards to both time and space, and insight into factors involved in splice site selection will be sought through the analysis of processing mutants. Third, the functional genetic unit will be defined by DNA transformation experiments utilizing null mutants. In vitro mutagenesis methods will ben be employed to identify functional regions encoded within these DNA sequences. These studies are expected to provide molecular insights into a morphogenetic pathway in a genetically accessible metazoan organism. %%% This proposal is to continue a molecular genetic analysis of the expression of eggshell proteins in the fruitfly, Drosophila. These genes have to be expressed at the correct precise time and is the correct tissues to ensure the successful development of the eggs for the future generation. The fruitfly provides a good model system for studying these important developmental events because both molecular and genetic studies are possible with this organism.